Plasma Physics of the Geomagnetic Tail

The proposed research is on the plasma kinetic processes in the earth's geomagnetic tail. The approach to be used is a combination of analytical an numerical methods. The research topics to be studied are new theories of slow shock in the distant tail region. Additional theoretical work includes study of broadband electrostatic noise (BEN) associated with slow shocks and electromagnetic instabilities in the plasma sheet.